Immunochemically Coupled Microelectrode

The immunologically coupled microelectrode will utilize antibody- mediated detection of a range of substances. These include toxins and viruses. The chemical event of antibody-antigen binding is tranduced to an electrical signal by the microelectrode and the signal is amplified. Rapidity of response will be greater than in any presently available immunoassay system. The phase of development which will be supported is the area of detection through chemical coupling.